REU: Research Experience for Undergraduates at the University of Wisconsin - Madison

This award provides continuing support for a Research Experiences for Undergraduates Site in the Department of Bacteriology at the University of Wisconsin-Madison. The program will provide an intensive summer research experience for ten undergraduate students in microbiology, molecular biology and related fields. Extra effort will be taken to recruit qualified students who are women, minority or disabled, and/or who otherwise have limited research opportunities at their own institution. The goal of the program is to stimulate promising young scientists to pursue careers in research. The Department of Bacteriology has an internationally recognized research faculty, committed to both undergraduate and graduate education, who will direct individual laboratory research projects. Participating students will work as part of a dynamic research team who are investigating basic questions in these areas of biology. Students will become familiar with the research techniques of microbiology molecular biology and biochemistry using modern equipment and facilities. The Department has an established record of providing research opportunities for its own undergraduate students and has successfully managed a summer research program for REU students (and related students) in 1988.